The NYSERNet Network: The Next Three Years, 1993 through 1995

9310796 Mandelbaum NYSERNet, Inc. requests resources for continued development of NYSERNet's New York State high speed data communications network through 1995. With these resources NYSERNet will; 1. Establish and support new high bandwidth applications and technical and end-user users groups; 2. Expand technical support and user services support for its members and affiliates; 3. Provide significant advice and direction to New York State's K-12 National Research and Education Network (NREN) access efforts. The challenge facing NYSERNet include: 1) delivering new capabilities, such as: Image Transfer, Multi-Media Database Access and Multi-Media Mail; interactive-network based distance learning; and the other applications described above; 2) continually improving network services in support of research and education to a widely varied and increasing user community of researchers, scholars, and educators in the natural sciences, social sciences, mathematics, engineering, humanities, and health sciences; 3) insuring that, after the next several years of planned changes to the NSFNET, NYSERNET's affiliates continue to enjoy the interconnectedness they now have, both nationally and internationally; and 4) increasing the utility of the Network to both sophisticated and new users. There are four dimensions of growth and development of this community: 1) there will be more users at more NYSERNet member and affiliate sites; 2) each user will make more use of the network; 3) each use will be more complex; and 4) there will be more new applications, especially in the areas of interactive computing, visualization, and collaboration. ***